Experimental Facilities for Application-Directed System Synthesis

This Infrastructure Award provides computational infrastructure for use in the areas of video coding and image understanding and fast-turnaround system synthesis. The former research area requires massive data stores and special purpose video processors. The latter area requires fast simulations. The infrastructure provided under this award includes both the special purpose computational video equipment and storage devices and the high speed workstations necessary for both research areas. Digital High Definition Television requires massive amounts of memory and substantial processing power. This infrastructure award is providing research equipment for investigations into digital video imaging and processing. The award also provides for a collection of very high speed workstations for the rapid simulation of computer systems. This capability will allow these systems to be much more rapidly developed.